Student Travel for Magnetism Summer School. To be held in Chennai, India, May 22-28, 2012.

Project Summary

Funds are requested to provide travel support for U.S. graduates students to attend
the 2012 IEEE Magnetics Society Summer School in Chennai, India. The Magnetism
Summer School is the IEEE Magnetics Society’s main outreach effort to promote
education in the field of magnetism and attract more young scientists to choose a research
career in magnetism and related areas. The one-week Magnetism Summer School is
designed for graduate students studying magnetism, will consist of lectures by
international experts and will include poster presentations by participating graduate
students. The program will cover fundamentals and advanced topics in magnetism. The
summer school is a unique opportunity for young scientists to meet leaders in their field
in a relaxed and collegial atmosphere and to begin establishing a network of colleagues in
the international research community. The funds requested from NSF will provide
additional opportunities for U.S. graduate students to attend the Summer School.

Intellectual Merit
The Summer School provides a forum for exchange of information in the field of
magnetics research. In addition to formal lectures, each participating student is required
to present a poster about their current research. These topics are discussed amongst the
students and lecturers during poster sessions.

Broader Impact
The broader impact of the Summer School lies in the education of young
scientists and researchers in a fast-moving and economically important field. Participants
will learn both fundamental as well as advanced topics through lectures delivered by
internationally-renowned experts. In addition, there is a degree of cultural education,
teaching young scientists to interact with and respect their colleagues from other
countries. The organizers of the Summer School particularly encourage women and
underrepresented minorities to apply. The program committee also strives for diversity in
the lecturers selected for the summer school to provide role models for female and minority students.